Some Questions in Set-theoretic Topology

Proposal: DMS-0072269
PI: Gary Gruenhage

Abstract:
The principle investigator proposes to focus on three well-known open
problems in set-theoretic topology: M. Husek's 1977 question of whether
compact spaces having a small diagonal are metrizable, J. Steprans'
fifteen-year old problem concerning the existence of uncountable
non-discrete spaces which are homeomorphic to each of their uncountable
subspaces, and J. Ceder's forty year old problem of whether stratifiable
spaces have a sigma-closure preserving base. All three questions involve
fundamental topological properties and constructions; they lie in the
mainstream of set-theoretic topology and have been worked on by many
researchers. The principle investigator has significant partial results
on all of them which answer related questions and give hope for further
progress. In particular, he has settled the first question for countably
compact spaces, affirmatively answered a countable version of the second
question, and with respect to the third question has obtained several
important results including a positive answer to a closely related
question of Ceder.

Set theory and general topology are fundamental mathematical disciplines
with common turn-of-the-century roots. General topology provides a
framework for the study of shapes, from ordinary structures in standard
three-dimensional space to much more abstract shapes, and the continuous
deformations of these shapes. Dramatic advances in set theory and logic
during the past forty years have led to the realization that many
long-standing questions in the general topology of abstract spaces rest on
complicated set-theoreti combinatorics and often cannot be solved
assuming only the standard axioms of set theory. Thus began a fruitful
interaction between the set theory and general topology which continues
today. The principle investigator's proposed problems lie within the
scope of this interesting interaction. Proposed methods of solutions to
the problems involve an interweaving of topological methods with
sophisticated set theoretic tools. Solutions to these problems would
deepen our understanding of fundamental topological properties and
relationships, and would likely require new set-theoretical and
topological techniques applicable to a variety of other problems.